Opposite Channel Based Hot Carrier Injection in SOI MOSFET's: Physics and Applications

9520990 Ioannou This project is concerned with the understanding of Hot Carrier Injection (HCI) in the next generation of scaled devices - the so-called silicon-on-insulator (SOI) devices. These devices have become increasingly important for low-power integrated circuits and it is important to understand the basic reliability physics associated with HCI. HCI is examined for SOI devices with a unique device structure which decouples the electron and hole contributions to device degradation. A new memory cell is proposed based upon opposite channel injection to provide the erase operation in SOI Flash Memory Cell. ***